Research Experience in Science and Engineering for High- Ability High School Students

9452672 Badar Case Western Reserve University seeks to initiate a four week, commuter Young Scholars institute in science and engineering for twenty four students entering eleventh and twelfth grades. At the heart of the institute is a program of individual students research projects carried out in the laboratories and under the mentorship of CWRU faculty researchers in various science and engineering departments. Several instructional days emphasizing science content , guided laboratory work and research methodology will precede the assignment to research projects. Career exploration activities include field trips to private research labs, a hospital medical physics department, and a nuclear power plant.; guest presentations by academic and industrial science and engineering professionals will offer further opportunities for students to hear career perspectives. Several sessions are scheduled for consideration of ethical issues confronting scientists and engineers. Follow-up activities and projects are required. ***